Collaborative Research: A TIE Research Program on E-Design for Design for Supply Chain

This collaborative research effort between the Industry/University Cooperative Research Center (I/UCRC) for e-Design at the University of Pittsburgh and the I/UCRC for Engineering Logistics and Distribution at the University of Arkansas and Oklahoma State University will address the problem of how to effectively synchronize product design and supply chain design for new and existing products resulting in not only a good product design, but a supply chain that is cost effective, minimizes lead time and ensures quality.

Results from the research will be incorporated into existing graduate courses and used to develop new graduate courses,. Furthermore the research will enhance the infrastructure for research and education with in the I/UCRCs. Empirical results of this research will guide industry partners and companies in their product and supply chain design efforts by providing industry related cases which are tested and validated with mathematical models and simulation.